The Isomorphism Conjectures for surgery L-groups, algebraic K-groups, and stable pseudo-isotopy spaces

DMS-0072349
Lowell E. Jones

Let G be an arbitrary discrete group. Jones and Farrell
have conjectured ("Isomorphism Conjectures") that the
surgery L-groups of G, L(G), and the algebraic K-groups
of the integral group ring Z(G), K(Z(G)), should be
computable in a simple way from the collections of all
the groups L(H), K(Z(H)) where H is any cyclic by finite
subgroup of G. The truth of these conjecutures would
imply rigidity results for aspherical manifolds
("Borel Conjecture") and also would yield much information
about the spaces of homeomorphisms and diffeomorphisms
of aspherical manifolds. Jones,in collaboration with Farrell,
is trying to verify the isomorphism conjectures for any group
G which acts properly discontinuously via isometries on a
complete Riemannian manifold having non-positive curvature.

Modern day geometers and topologists are concerned with
"spaces" and what they look like. The surface of a donut,
the sphere and the plane are examples of 2-dimensional
spaces which are all different from one another from both
the perspective of geometry and topology. One way that
topologists study spaces (not just of dimension 2 but of
higher dimension also) is to associate to each space some
algebraic gadgets. It is conjectured that for many
interesting spaces these algebraic gadgets act like
a "genetic code" for the space, in that they tell us
most everything we want to know about the space. Thus
there are two fundamental problems here: to verify this
"genetic code conjecture"; and to decifer the genetic code
for the spaces which are of interest to geometers and topologists.